NSF Young Investigator

9457268 Glaser The research plan focuses on application of nondestructive evaluation techniques to geotechnical engineering, combining elements of electrical and mechanical engineering with the rich heritage of geotechnical engineering. The plan attacks on two sales. 1. Diagnostic acoustic emission analysis of rock failure mechanism for real-time monitoring. 2. Application of recursive system identification to soils excited by earthquake strong motion for anlaysis of nonlinear behavior and damping. ***